A Science-Based Video Series for Young Children

Maryland Instructional Television, in conjunction with the National Science Teachers Association, will use the expertise of scientists and educators and the medium of television to create an exciting science video series for children ages four through seven. The activities of the project include the identification of content, design of instructional video and ancillary print materials, and formative evaluation. Fifteen video programs will be developed, each containing two or three separate sub-programs. These will be supplemented by teacher and parent guides which will suggest activities designed to expand upon the material covered in the program. The series content and materials will explore everyday events in the lives of young children and will integrate science and mathematics concepts, skills and application into a variety of curricular areas. The companion activities will make use of objects already in the child's world or easily accessible in the home. This project is funded jointly with the Instructional Materials Development Program.